Mathematical Sciences: Travel Support for Two Conferences

This project will support travel by the principal investigator to two international conferences: (1) a conference on corner singularities for elliptic boundary value problems to be held in Luminy, France and (2) a conference on numerical analysis, to be held at the Nankai Institute, in Tianjin, China. The principal investigator will actively participate in both programs by giving lectures on the topics of the conferences.